Integration of GPS and Seismological Equipment with Inquiry Based Pedagogy for Geology and K-12 Preservice Curriculum

Geology (42) To enhance undergraduate learning of science inquiry skills utilizing field equipment and laboratory exercises and to retain science content in geology, we have adapted several NSF-funded physics (SCAMPI) and seismology (IRIS, SCEC) curricula into an integrated lecture/laboratory format. This project integrates seismic refraction/ reflection, earthquake, and Global Positioning System (GPS) equipment with inquiry-based pedagogy into our programs for three categories of student population: 1) geology majors (including pre-service secondary students), 2) non-majors in general education, and 3) pre-service (K-6) students. The main applications of the equipment involve investigations of seismic-wave propagation associated with local earthquake recordings and seismic profiling of local faults and geologic structures, plate tectonic motions, and topographic and geologic mapping exercises.
The equipment/curriculum objective includes the coordination of inquiry-based science instruction for the three categories of student populations, with a major emphasis on technical training for our undergraduate majors and a renovated science curriculum for the elementary education major. The project results are assessed by a combination of qualitative and quantitative methods to evaluate the effect our program has on the student's conceptual understanding of geologic principles. Approximately 400-425 students per year are involved from introductory utilization of the equipment to extensive training for the geotechnical and environmental disciplines associated with industry-based employment.